The Learning Lab

This project supports the development of a multimedia authoring environment to be used by students to develop and test user interfaces. Support is provided for the open source developers to meet to share their ideas and work and to plan future work. The outcome will be a high quality, public domain environment for multimedia authoring and testing.